RUI: Old Industries, New Industries, and Regional Development

Dramatic changes in the industrial structure of many regions have taken place in recent decades. Older industries have declined or departed from many regions, while newer firms have taken their places. Research on the dynamics of industrial decline and growth generally has focused on these processes independently; few attempts have been made to link these processes, thereby determining the degree to which abandonment of regions by certain manufacturers relates to the development of new industrial activities. The first phase of this project will examine case studies already completed by the investigators and by other scholars to enhance the conceptual framework for the analysis of changing local and regional economies. This synthetic examination will expand models of production life cycles, and it will clarify potential relationships among firms in local and regional settings. The second part of the research project will consist of a detailed comparison of two industrial regions, one in the northeastern U.S. and one in another part of the country. Data on economic, demographic, political, and other relevant factors will be gathered, and corporate executives, civic, financial, and labor leaders, and other knowledgeable individuals will be interviewed. These case studies will permit validation of the general models of industrial change and identification of the processes and factors that link different firms moving in and out of industrial regions. This research will gather and integrate conclusions drawn in a large number of case studies on this important topic. It will provide a systematic, detailed analysis of the processes and factors that influence the decisions of firms to leave or enter two specific industrial areas, and it will offer a valuable assessment of more general models of economic locational decision making. This project also will provide an excellent opportunity for an outstanding scholar at a predominantly undergraduate institution to expand the level of her research, thereby benefitting both the scholarly community at large and the students who will work with her on this project.